Planning Grant: I/UCRC for Center for Bioplastics and Biocomposites

1266159 Iowa State University; David Grewell
1266249 University of Massachusetts Lowell; Margaret SobkowiczKline

The goals of the proposed center are: to improve the basic understanding of the synthesis, processing, properties, and compounding of bioplastic and biocomposite materials; to develop reliable material characteristics data for industrial partners; and to support large-scale implementation of renewable magterials. Iowa State University and the University of Massachusetts Lowell are collaborating to establish the proposed center, with Iowa State University as the lead institution.

The intellectual merit of the proposed work lies in the creation of transformative new materials and processing technologies and the necessary reliable, comparable material data to allow efficient and profitable industrial use of biorenewable alternative materials. This will reduce dependence on petroleum and the release of harmful greenhouse gases. The team of researchers includes experts from the fields of polymer processing, polymer chemistry, materials science, and crop utilization. It combines a wide breadth of experience and expertise allowing a well-rounded interdisciplinary approach. The proposed center's vision is to develop the knowledge that will allow the production of an array of high-value products, including plastics, coatings, adhesives, and composites, from agricultural feedstocks that are compatible with current manufacturing systems at attractive scales and thereby promote rural-based economic development and sustainability.

The proposed center will have positive impacts on the environment and the economy. The knowledge generated through research at the center will accelerate the demand for bioplastics, promoting a substantial, sustainable workforce that is less likely to be outsourced. Because much of the research will be conducted by undergraduate/graduate students and postdoctoral research associates, this center will train and educate future scientists and engineers. The center will also prepare web-based videos targeted at K-12 teachers that will provide instructions on how to make simple and easy off-the-shelf bioplastics in the classrooms. By leveraging existing activities on the various campuses, the center will strive to achieve 50% recruitment of under-represented students. In addition, by working with the same organizations and using a similar approach, the center will strive to retain 90% of these students.